Scientific Program Overview (SPO): Cold Air Outbreak Experiment in the Sub-Arctic Region

The Arctic is the region on planet Earth warming the most rapidly with rapid sea ice loss and increasing air temperatures reinforcing each other. Changing ice cover posts great uncertainties on Arctic winter weather and significant impacts upon coastal communities and local transportation. In addition, how the high-latitude changes connect to the mid-latitude and the global climate system is another challenging question. One particularly poorly understood weather regime is cold-air outbreaks when cold Arctic air streaming over relatively warm open ocean water. During cold-air outbreaks, relatively warm moist air is transported up in forming lines of clouds. Little is known about the cloud properties and their rain and snowfall amount in relation with the accompanying vertical air movement and sea surface conditions. Cold air outbreaks occasionally spawn into intense circular air movements, “polar lows”. Cold-air outbreaks have significant impacts on the global heat and water transport as well as ocean circulations. Despite their impacts on weather and climate, cold-air outbreaks remain difficult to predict.

This awarded project is to plan a dedicated field study, Cold Air Outbreak Experiment in the Sub Arctic Region (CAESAR) that has the goal to gather the necessary measurements to understand the mysterious cloud regime associated with cold-air outbreaks. The planned field campaign will be in collaboration with Scandinavian scientists and provide unique training opportunities to students to be the next generation of atmospheric scientists.

The CAESAR field campaign is anticipated in February-March 2022 over the Norwegian Sea, a spot where cold-air outbreaks are prevalent. The NSF/NCAR C-130 aircraft with a suite of radars, Lidars, radiometers, aerosol, cloud, precipitation and trace gas probes will be deployed from northern Sweden or Norway. The goal is to study the structure of marine boundary layer clouds during cold-air outbreaks with a focus on fully sampling microphysical (liquid and ice) properties of cloud particles and the accompanying dynamics. Flight plans are designed to investigate cold-air outbreaks throughout their entire evolution from their initiation over the Arctic sea ice edge to well-developed cloud structures far downstream. The CAESAR measurements will not only afford new insights of development of fine-scale cloud structures but also constrain a hierarchy of numerical models ranging from eddy simulations capable of capturing the nuanced small-scale cloud and dynamical processes to numerical weather and climate models. A dedicated model-observational intercomparison project is planned to improve numerical models particularly their performance in the ‘grey-zone’ where state-of-the-art weather models fail to capture the relevant cloud and dynamical processes.